BEST: Bridging Engineering and Science Teaching

PROPOSAL NO.: 0230588
PRINCIPAL INVESTIGATOR: Pickett, Mark
INSTITUTION NAME: University of Toledo
TITLE: BEST: Bridging Engineering and Science Teachin

Abstract

BEST: Bridging Engineering and Science Teaching

The goal of this project is to improve the education of Education and Engineering students, while
simultaneously engaging Engineering and Education faculty in a collaboration that employs the best
available pedagogy. The project will develop lower level engineering courses that utilize the strengths of
both faculties. The result of this collaboration will be engineering courses that are more attractive to a
diverse range of students and the development of high school teachers who appreciate engineering design
and encourage their students to explore applied science design issues and careers.

With this planning grant, an inquiry-based pilot course in structural design will be used to explore
the role of an Engineering-Education collaboration in improving engineering education. A second-year
course, ioIntroduction to Structural Designlr, will be planned and taught. It will be accessible for Secondary
Education majors while maintaining the necessary technical content for Engineering students. The course
will provide the rudiments of structural design for Education majors and lower-level Engineering students.
Students completing the course will participate in jointly taught coursework, will learn both technical
content and educational methods, and will be prepared for higher-level coursework within their major. The
collaborators will develop a general methodology for team-teaching of modified engineering content that
can be employed throughout the curriculum in a series of courses to provide content for Education students.
If the first course is successful, a detailed plan for further collaboration including other collaborative
courses, possibly involving local engineering projects, will be developed.